Presidential Young Investigator Award (Computer and Information Science)

This Presidential Young Investigator Award is for support of Masaru Tomita at Carnegie Mellon University. Tomita's research centers on computer systems for natural language processing, especially multi-lingual translation systems and real time natural language processing systems. His goals include the development of knowledge- based translation systems for English, Japanese, French, and German. The significance of this research is that automatic processing of natural language is a vital component in computer systems interface for the future. Multilingual translation systems have fundamental theoretical and economic importance. The Presidential Young Investigator Awards provide research funding to attract and support young researchers of the highest quality in the university environment.